Interfacing an Automatic Data Acquisition System with Experiments in the Mechanical Engineering Laboratories at Hofstra University

The aim of this project is to acquaint the engineering student with modern methods used in the acquisition of experimental data and in the automatic control of experimental events or industrial processes. The specific goals are: to introduce modern data acquisition techniques in a undergraduate fluid mechanics and heat transfer laboratories and to facilitate real-time computer analysis of experimental data. To accomplish these goals, the following instrumentation is being sought: an Automatic Data Acquisition System (ADAS), various sensors and transducers to interface with the ADAS, a printer and plotter for outputing the data, and equipment to construct a pressure transducer calibration system. The project is important for the following reasons: by streamlining the analysis of experimental data, the exposition of the fundamental physical principles of fluid flow and heat transfer will be enhanced for engineering students, opportunities for creative undergraduate student projects/research with subsonic and supersonic windtunnels will be broadened and the engineering student will be trained in the use of the ADAS by generating computer software for analyzing and presenting experimental data acquired in various fluid flow phenomena.